Partial Support for an ACS Symposium "Polymer Design for Biology: Activity and Structure"; October 3-6, 2004; Savannah, GA

An international symposium entitled "Polymer Design for Biology: Activity and Structure"
is being organzied for Oct. 3-6, 2004. This meeting is sponsored by the Polymer Chemistry
Division of the American Chemical Society. The goal of this symposium is to
educate both the polymer and biotechnology communities of mutual needs and capabilities.
This interdisciplinary symposium is consistent the the goal of the National Science
Foundation to foster interactions between different technical areas. Funds are sought to
help defray the travel costs of young scientists who will be speaking at this symposium.